Elementary Mathematics Instructional Improvement Project

The project offers a month long summer institute for 30 well- prepared elementary school teachers from Tennessee which will be followed during the academic year with activities at the participants school districts. The focus is on three main areas: geometry, problem-solving, and instructional computing. These are interconnected in the project by involving problem-solving activities in the study of the geometry topics as well as incorporating computer investigations into the geometry and problem-solving activities. The graphic capability of the computer language LOGO also serves as the vehicle to develop an interplay between the geometry topics and the problem-solving situations. The 30 participants are selected by the school districts that have committed to the project and the plan is to implement the project activities into the programs at the participants' districts to continue the work of the project and extend the knowledge and techniques developed to other teachers in the districts.